SBIR Phase I: High quality, low cost bulk gallium nitride substrates

This Small Business Innovation Research Phase I project will investigate the feasibility of growth of high quality, low cost bulk gallium nitride substrates by the high pressure ammonothermal method. The proposed approach utilizes a novel apparatus which is scalable to process volumes of hundreds of liters at modest cost.

If successful this project will dramatically reduce the cost of GaN substrates for use in optoelectronics and energy conversion devices.